Fundamental Design of Branched Fluid Particle Separators Based on Inertial Migration Phenomena

ABSTRACT David Dandy CTS-9404556 Particle separation in liquid-solids laminar flow branches pipes will be investigated using a combined computational and experimental fluid mechanics approach. Three-dimensional Navier Stokes simulations will be used to determine particle trajectories and concentrations in branched separations including concentration variation with the pipe radius (termed tubular pinch) and the effect of secondary currents. The results will be compared to a systematic set of measurements performed by changing the particle density, size and shape, and branched pipe diameter ratio and angle. Particles to be used in experiments are of spherical, quasi-spherical and elongated shapes, which are relevant to cell separation processes. The model for the velocity and concentration prediction at moderate Reynolds number will be used to develop improved design methods. By concentrating the particles away from the wall, the particle-free fluid can be sucked into side branches. If successful, the project is expected to provide experimental and numerical data in a biotechnology area with limited previous research results, and a design methodology for two-phase flow in branched pipe systems leading to more efficient cell separation systems. ***